Mechanistic Quantification of Capacity Decay in Solid-State Batteries through Degradation Pathway Decoupling

NON-TECHNICAL SUMMARY

This research project addresses the critical issues of battery safety by investigating next-generation solid-state batteries. While current lithium-ion batteries rely on flammable liquid components that pose flammability risks, solid-state batteries utilize nonflammable, solid ceramic materials to provide a much safer energy storage alternative. However, these advanced batteries suffer from rapid performance decline over time due to complex internal degradation processes that are highly interconnected and poorly understood.

To solve this challenge, this work is deploying a systematic method to separate and examine three major internal degradation pathways that happen simultaneously inside the battery. These pathways include interface deterioration, particle cracking, and material separation. By using specialized material modification strategies, this project is isolating each individual breakdown process to measure exactly how much it contributes to battery failure.

This project represents a valuable investment of NSF public funds by furthering the national interest in sustainable energy, economic competitiveness, and national security. The knowledge gained enables the design of longer lasting, safer batteries for transportation, the electrical grid, and other national interests. Furthermore, this initiative strengthens the regional STEM workforce by training graduate and undergraduate students through a statewide educational network. Public outreach events, such as engineering showcase days and museum demonstrations, are also inspiring young minds and increasing community awareness of sustainable energy technologies. By integrating research and education, this project is supporting the mission of the National Science Foundation to promote the progress of science and advance the national welfare.

TECHNICAL SUMMARY

This research project focuses on the mechanistic quantification of capacity decay in solid-state batteries through a novel degradation pathway decoupling methodology. High energy density nickel rich layered oxide cathodes face severe challenges when paired with sulfide-type solid-electrolytes, leading to rapid performance decay. This degradation originates from three interconnected degradation pathways, which are: 1) cathode-electrolyte interface deterioration, 2) mechanical particle isolation via microcracking, and 3) physical cathode-electrolyte detachment due to lattice volume changes. Owing to these degradation mechanisms interacting dynamically during battery operation, isolating and quantifying their individual impacts is difficult.

To address this challenge, this work is implementing a process of elimination using dual neutralization strategies to systematically isolate each pathway. The project is utilizing three scalable material modifications, which are: 1) a boron-based coating to protect the cathode-electrolyte interface, 2) a nano-rod bulk morphology to prevent microcracking, and 3) crystal unit-cell stabilization to minimize lattice strain. Advanced characterization techniques, including X-ray photoelectron spectroscopy, time-of-flight secondary ion mass spectrometry, and in-situ X-ray diffraction, are being deployed to evaluate the representative electrodes across varying nickel contents. Electrochemical evaluation is also being conducted using full cells exercised up to one thousand cycles.

This project is contributing to battery science by establishing precise quantitative models of solid-state battery failure mechanisms. This project is also establishing a transferable methodology to isolate coupled electrochemical and mechanical failure mechanisms, yielding quantitative degradation models and material design guidance for solid-state battery structures. The broader impacts include open-access mechanochemical datasets to accelerate materials discovery and the integration of research with a multi-institutional educational network within Alabama. This network is training a STEM workforce in advanced materials synthesis and electrochemical manufacturing. Ultimately, this work aligns with the national interest by advancing high-performance, safe energy storage systems critical for transportation, grid infrastructure and other national interests.